International Program Development In Undersea Robotics & Intelligent Controls: (A Joint U.S./Portugal Effort), January, 1995, Lisbon, Portugal

9415748 Valavanis This action is to develop an international cooperative activities program between the U.S. and Portugal and thus, with close coupling to other European Economic Community (EEC) countries and with additional potential coupling to Latin America countries - in the area of Undersea Robotics and Intelligent Controls. As a first step towards this major effort, it is proposed to organize a two day Workshop in January, 1995, to be held in Lisbon, Portugal, hosted by the Institute Superior Tecnico- DEEC, with title, "Undersea Robotics and Intelligent Controls." The main objective of the proposed workshop will be to allow the invited U.S. participants and their foreign colleagues to identify specific topics of common interest for long-term research collaboration. The benefits of the proposed international cooperative activities program for the U.S. will be many. They Include: i) Coordination and integration of research efforts in Undersea Robotics and Intelligent controls between the U.S. and Portugal/EEC, ii) Unification and coordination of cutting edge research in both U.S. and Portugal/EEC, iii) Developing the basis for future joint seminars, workshops, visits, etc., which enhance the international perspectives of U.S. scientists and engineers, and, iv) Enhancement of the U.S. role as a research leader in the area of Undersea Robotics and Intelligent Controls. Finally, it is proposed that all related travel expenses for the invited U.S. participants, be covered by NSF funds. Expenses for all European participants will be covered by Portugal and/or EEC educational funds.